Topology and its Applications

DMS-0073006
Sylvain Cappell

Among the range of problems to be investigated in topology
and geometry in low and high dimensions, some concern the
study of transformation groups, that is the symmetries of
manifolds and of more general spaces. New methods of
classifying such group actions will be developed with a
view to making good connections with methods of equivariant
homotopy theory; basic "naturality" questions for the set
of group actions on a manifold will be studied. Another
set of problems concerns a variety of both topological
and algebraic invariants of varieties, e.g. theories of
characteristic classes, and new methods of explicitly
computing them. A related series of questions to be
investigated concerns the relations between the global
topology of divisors and the local geometry of their
singularities which must, in general, be regarded as
"singular knots." The natural actions of mapping class
groups and their Torelli subgroups on the moduli spaces
of representations (which are foundational in algebraic
geometry, in gauge theory, in 3-manifold topology, and
in string theory) will be investigated with a view to
applications in three dimensional topology. Decomposition
methods for studying analytic and geometric invariants of
manifolds and the relations between them will be investigated,
again with a view of applying such relation to three
manifolds. Computations of generalized characteristic
classes of toric varieties will be combined with other
topological, geometric, and analytical methods to obtain
results in geometrical combinatorics and applications to
problems concerning lattice sums.

This research project involves several investigations in
a range of problems in topology and geometry in low and
high dimensions and studies of some new applications of
these in other areas of mathematics. Some of the research
work will involve invariants of manifolds and of more
general spaces, such as singular varieties. Effective
methods of computing such natural invariants will be
sought. The moduli spaces and three manifold invariants
to be investigated also arise in geometrical approaches
to theoretical physics. A combination of geometrical,
algebraic and analytical methods will be used to study
possible applications of singular varieties to problems
concerning comparisons of lattice sums with integrals.
Such comparisons are of interest in many areas of the
mathematical sciences.